In Situ Density Measurements of Molten Minerals at High Pressures and Temperatures

The properties of molten minerals become more and more important for
understanding the structure and dynamics of the Earth's interior, as
crystalline minerals have been much more extensively studied. This proposal
will take the advantage of new experimental capabilities at synchrotron
beamlines to study molten minerals, and to explore new possibilities at the
community owned facilities. The proposed research activities include: 1)
Measuring the density of molten Fe-FeS system at high pressures and
temperatures 2) Observing Fe and H alloying at high pressure and measuring
density of Fe-H melt. 3) Exploring the reality of density measurements of
molten silicates. The project will use a multi-anvil press for pressure and
temperature generation, and monochromatic x-ray radiography and x-ray
absorption simulation for melt density measurements at high pressures.
Results of density measurements on the iron alloy system will
provide essential
information for understanding Earth's core composition and robust data for
future DAC melt density measurement development to advance the pressure
range up to core conditions. The materials to be studied in this project are
not limited to core minerals. This research will also include
exploring the possibility of measuring iron-rich silicate melts.
Collaborations and technical developments will be
brought into the project as the research proceeds. All of the new
experimental capabilities developed at synchrotron x-ray beamlines as a
result of this project will be open to the community for scientific
research.